Operator Algebras and Noncommutative Topology

ABSTRACT
Blackadar

Blackadar will study a range of questions concerning the structure of various
classes of operator algebras and their relation to noncommutative topology.
Topics will include generalized inductive limits of finite-dimensional
C*-algebras and the structure of nuclear C*-algebras, semiprojectivity,
nonstable K-theory and the Universal Coefficient Theorem, and bivariant
cohomology theories on C*-algebras and their dense subalgebras.

An idea which has revolutionized the study of operator algebras in recent
years, and which has led to some spectacular applications throughout
mathematics and mathematical physics, is to view operator algebras as
generalizations of topological spaces, or more precisely the set of
continuous functions on a topological space; the principal new feature
is that the multiplication of "functions" is no longer assumed to be
commutative. It has long been recognized that operator algebras provide the "right" framework for the mathematical formulation of quantum mechanics, and it has been increasingly recognized
recently that noncommutative "function spaces" (operator algebras)
arise naturally in problems in subjects as diverse as knot theory
(with applications to the structure of DNA and other molecules, as well
as mathematical physics), dynamical systems, and even mathematical logic.
It has become apparent that it will be possible to give an explicit
description of all operator algebras in large classes, including most
algebras arising in applications, far beyond what was thought possible
only a few years ago. This project concerns some of the central
remaining problems in the classification of one particularly important
class, the nuclear C*-algebras. Understanding the mathematical structures
that can occur will give great insight into the nature and behavior of
the associated applied problems.